Interactions in Crystals by a Lagrangian Approach

9315907 Nelson This grant renewal will continue theoretical studies of the electromagnetic response of crystals to external fields using a Lagrangian approach. Four topics will be explored. (1) An entirely new mathematical method of solving wave propagation problems in bounded media will be studied. This method operates in wavevector space where there are no boundaries and so uses no boundary conditions. (2) A new solution for the optical reflectivity near an exciton resonance of a half-space of matter will be studied. (3) A macroscopic Lagrangian formulation of spin using Grassmann algebra will be used to explore the properties of magnetic media. (4) Finally, research will be conducted on the form of the electromagnetic energy flow vector in a material medium. %%% The research proposed is in an area of solid state physics called crystal physics. A macroscopic approach is taken to determine the effects of external magnetic and electric fields, and their interactions, on the properties of crystals. Thus, optical and magnetic properties can be understood and new phenomena predicted. These new phenomena can then be verified by experiment and studied in more detail using more microscopic approaches. In addition to its fundamental interest, the work may be of importance to the field of photonics. ***